Regulation of Ribosomal Protein mRNA Translation

The synthesis of eukaryotic ribosomal proteins r-protein) is translationally regulated during the differentiation of mouse myoblasts into fibers and in a wide variety of other organisms and cell types. Elucidation of the mechanisms controlling r- protein synthesis will greatly enhance our understanding of eukaryotic ribosome formation and add to our knowledge of eukaryotic translational control. The translational regulation of r-protein synthesis is due to the interaction of factors with structural motifs within the 5'untranslated region of r-protein nRNAs. A major aim of this proposal is to determine the secondary structure of the 5'end of purified L32 and S16 r-protein mRNAs and determine the structure of these same mRNAs when they are assembled into 45S subpolysomal mRNP or polysomes. This will be accomplished using chemical and enzymic Probes specific to single or double stranded RNA and crosslinking agents. If similar secondary structures are detected in L32 and S16 r-protein mRNA, their importance for translation will be evaluated by making compensating and noncompensating changes in the stem sequence and then assaying the effect of these changes on translation. Another major aim is to identify and characterize the factors binding to the 5' end of r-protein mRNAs as these may regulate the translation of r-protein mRNA. It will be determined whether these factors are different from factors binding to the 5' end of efficiently translated mRNAs and determine whether their activity changes during myoblast differentiation. This will be addressed using gel mobility shift and UV crosslinking techniques. The last major aim is to isolate and characterize the S16 45S sub polysomal mRNP using centrifugation, gel electrophoresis and biotin-strepavidin chromatography, and to determine the RNA and protein composition of this subpolysomal mRNP Analysis of the structure of this mRNP should determine if the 45S subpolysomal mRNP is a storage particle or an intermediate in the translation initiation pathway. %%% Ribosomes translate mRNA into protein and therefore play a central role in cellular metabolism. The ribosome content of eukaryotic cells is therefore highly controlled to insure that cells have a sufficient number of ribosome to support growth and development. The proposed experiments should enhance our understanding of eukaryotic ribosome formatioin and control of translation.